Science Communities of Practice Partnership

This project will study implementation of an effective professional learning model for elementary science teachers that includes teacher leaders, administrators and university educators in a system perspective for improving science instruction in ways that make it sustainable. The working model involves reciprocal communities of practice, which are groups of teachers, leaders and administrators that focus on practical tasks and how to achieve them across these stakeholder perspectives. The project will provide evidence about the specific components of the professional development model that support sustainable improvement in science teaching, will test the ways that teacher ownership and organizational conditions mediate instructional change, and will develop four tools for facilitating the teacher learning and the accompanying capacity building. In this way, the project will produce practical knowledge and tools necessary for other school districts nationwide to create professional learning that is tailored to their contexts and therefore sustainable.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of instructional innovations. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This study posits that communication among district teachers, teacher leaders, and administrators, and a sense of ownership for improved instruction among teachers can support sustainable change. As such, it tests a model that fosters communication and ownership through three reciprocal communities of practice--one about district leadership including one teacher per school, coaches and university faculty; another about lesson study including teachers, coaches and faculty; and a third about instructional innovation including teachers and administrators, facilitated by coaches. The research design seeks to inform what the communities of practice add to the effects in a quasi-experimental study involving 72 third to fifth grade teachers and 6500 students in four urban school districts. Mixed methodologies will be used to examine shifts in science teaching over three years, testing the professional development model and the mediating roles of reform ownership and organizational conditions.